Human Capital and Bayesian Information Theory

SBR-9422763 Boyan Jovanovic and Yaw Nyarko It is common practice in economics to specify the production function of the firm independently of the process of human capital accumulation. This research shows that many forms of technological change-- learning by doing, learning by watching, learning by research and learning by copying-- imply that output production function and the human capital accumulation process must have common parameters. This, in turn, implies that an understanding of how human capital grows requires knowledge of the production process. Furthermore, (a) the level and growth of individual's earnings will depend on the nature of the work done, (b) the level and growth of productivity at the plant or firm level will depend on the nature of the production process, (c) the level and growth of human capital of countries or regions will depend on the sectoral composition of production. This research sheds light on these relationships.